Ethnicity, Poverty and Latino Homicide: The Effects of Immigration on Crime

95-15235 Research on homicide proliferated during the 1980's and 90's but social scientists still lack a fundamental understanding of the socioeconomic factors that shape Latino homicide. This Research Planning Grant proposal addresses this shortcoming through the collection of data that will enable the investigator to examine the relationship between poverty and economic inequality and Latino homicide in Miami, Florida between 1989-1993. Data (i.e., date, time, location of homicide event and age, gender, race/ethnicity of offender and victim) from the Miami Police Department homicide files will be supplemented by US Census income, poverty, educational and population data. This study will test a series of hypotheses related to economic correlates of homicide using localized measures (by census tracts) to predict variations in homicide rates. Using census tracts as the level of the analysis is far more sophisticated than most similar work that relies on measures that aggregate data at the city or state level. This data set will be unique in criminology and will provide the basis for future comparative efforts with Latino subpopulations in other geographic areas.